Support for US-based Scientists to Attend Quantum Dynamics Imaging Workshop;Montreal, Canada; October 19-23, 2009

Travel support will be provided for speakers, students and postdoctoral
researchers to participate in the Quantum Dynamic Imaging workshop, which
will be held October 19-23, 2009 at the Centre de Recherches Mathématiques, Université de Montréal, in Montreal, Canada. Support from this grant is limited to participants either working at or being enrolled in a program offered by a U.S. university. Priority will be given to participants presenting an invited or contributed paper at the conference